SHF: CSR: Small: Fine-Grained Modularity and Reuse of VM Components

Much of today's information infrastructure makes use of virtual
machines (VMs). For example, consumer devices typically contain VMs
for Java, JavaScript, and Flash. VMs are often well suited to roll out
new capabilities to a broad range of target devices, which is why new
VMs are being created all the time. Unfortunately, most VMs today are
created from scratch, in spite of the fact that they are broadly
similar. This is a considerable waste of programmer time and money.
The goal of this project is to make creating VMs simpler, by creating
a "toolbox" of components from which new VMs can be constructed
easily.

The technical challenge is to create building blocks that can be put
together to work as well as the custom-crafted VMs of today. In many
cases, VM performance is critical. For example, on mobile devices, a
slower VM might force us to run the processor at a higher speed,
leading to faster battery depletion. This research promises that
one may one day be able to create a competitively
performing VM for Java, JavaScript and Flash in which some parts are
shared, so that the total size is much smaller than three separate
VMs. This is important for resource-constrained devices such as
mobile phones. Re-using components rather than reinventing the wheel
each time would reduce the entry cost for new languages. Sharing
components would also lead to pooling of debugging resources, reducing
errors and thereby leading to a safer and more stable computing
infrastructure.